SSC: "The Biosphere of Tomorrow-Summer Science Camp

SSC-9450492 Seattle Central Community College Seattle, WA Bryce, Herb and Teresa Tipton "The Biosphere Of Tomorrow-Summer Science Camp" The Biosphere Of Tomorrow is a partnership of the Seattle Central Community College, The Seattle School District, and The Breakfast Group in conjunction with Seattle area businesses to implement a four-week exploratory summer science camp for underrepresented male and female middle-school students. The camp will utilize classroom and lab facilities at Seattle Central Community College. The goal of the program is to motivate underachieving minority students to pursue science, math and technology studies as they continue in school. Activities are designed to increase awareness of the region's environment and how urbanization has affected water quality in the Puget Sound region. The camp will serve approximately 75 students recruited from Seattle area middle schools with the assistance of counselors, teachers, community organizations, case workers, churches and parents. Careers in Electronics, Engineering, Computer Science, Biotechnology and Environmental Science have been targeted for their job growth potential in Washington state. The Biosphere Of Tomorrow integrates activities in life, earth and physical sciences with math and computers to current social and environmental issues. Principles from these areas will be linked to daily life through experiments, design problems,field studies and collaborative group problem-solving activities. Sessions will be held six hours a day, Monday through Thursday, with Fridays devoted to field studies. Students rotate in teams attending team- taught sessions with professionals from the representative fields. The camp will focus on water quality, exploring the hydrologic cycle, watershed management, conservation, pollution, and hazardous waste disposal. Uses of water, including the generation of electricity and its role in the economic vitality of the region will be explored. S tudents will conduct longitudinal site studies examining impacts to water quality. Water samples will be collected and analyzed from four diverse sites in Puget Sound. An overnight "Camp-In" will be held at the Pacific Science Center. Years two and three, students will grow bacteria that produce plastic naturally and learn how to extract DNA from cultures. Results from site studies will be utilized from year to year tracing impacts to water quality in the region over time. Problem- solving exercises, probability, statistics, entering data into spreadsheets and graphs, and visual documentation will integrate lab activities with math and computer studies. Students will learn software authoring skills in order to produce a multi-media presentation and display of their group's results for a culminating event open to the public. Hot lunches and daily transportation are provided. At the end of the camp, students are recognized with a certificate and take-home science kit. Two scholarships to camps at the Pacific Science Center will be awarded to a boy and a girl selected by faculty. Teaching Assistants will recruited from high school and college minority science programs including Math, Engineering, Science Achievement (MESA), and the Minority Teaching Academy to work with community mentors in the camp. Career assistance workshops, a parent outreach event and follow-u activities during the school year are included to reinforce and support the efforts of the program. A corresponding in-service teacher training institute will be offered to fifteen Washington state teachers to develop culturally relevant, anti-bias science teaching strategies with at- risk students. ***